IRES: Supramolecular Structure and Materials in Nanoscience at Jilin University

OISE-0824860 (Lewis, J.P. - West Virginia University) IRES: Supramolecular Structure and Materials in Nanoscience at Jilin University. Six teams of students (one graduate student and one undergraduate student per team) will work with researchers at the State Key Laboratory of Supramolecular Structure and Materials located at Jilin University (Changchun, P.R. China). In an eight-week program, students will work in five key research areas: Magnetic Nanostructures, DNA - Carbon Nanotube Combing during Layer-by-Layer Assembly, Multi-Pore Nanoparticles, Artificial Enzyme Mimics, and DNA Conformation for Nano-Material Applications. Students from underrepresented minorities will comprise over half of the participants as we use this opportunity to retain and recruit these students. Each year, symposia at both Jilin University and WVU will be run with participation of faculty and students from each institution. Students participating in the IRES program will use these symposia as an opportunity to present their findings; other non-IRES students will also be encouraged to participate in these symposia.